Partial Support for Fourth World Congress on Particle Technology July 21-25, 2002, Sydney, Australia

Funding is requested to cover part of the travel cost for faculty in US universitites to attend the Fourth World Congress on Particle Technology being held in Sydney, Australia, July 21-25, 2002. This World Congress covers all aspects of the particle technology and includes contributions from international investigators from many countries. this international meeting provides significant opportunties for international collaboration.